Knowledge Warding Against Toxin Levels

The Knowledge Warding Against Toxin Levels Center for Oceans and Human Health is a five-year effort aimed at addressing key unknowns surrounding paralytic shellfish poisoning (PSP). In addition to being a global health challenge, PSP is a particular concern in tribal communities of coastal Alaska. The Center will conduct three related projects, with information from each project enhancing the utility of the others for the subsistence harvest community. Project 1 asks, “When and where is it safe to harvest shellfish, and how does environmental change alter that picture?” Project 2 asks, “Which toxins are contributing to the health risks?” Project 3 asks, “What is peoples’ relationship to shellfish? What do people prefer to eat, and what is most contaminated with toxins?” Local engagement activities will support community participation in the research, create K-12 curriculum materials, and support workforce development for tribal youth and students in rural communities. The Center is jointly supported by NSF’s Directorate for Geosciences and by the National Institute for Environmental Health Sciences (NIEHS).

The aim of Project 1 is to understand the impacts of environmental change on shellfish toxin exposure using multiple approaches including model-based forecasting and laboratory-based experiments on subsistence harvest species. Investigators will (1) build and test annual forecasts for shellfish toxins using community samples and forecasted climate; (2) compile sources of ocean acidification data across the Gulf of Alaska and determine its impacts on shellfish toxins; and (3) conduct laboratory experiments to examine the effects of environmental conditions on toxicokinetics of PSP toxins in subsistence species. Project 2 will evaluate the toxicity of shellfish samples. Investigators will (1) Compare predictions of shellfish saxitoxin-related toxicity using a receptor binding assay (RBA) measuring total toxicity with estimates based on measurement of individual saxitoxin congeners plus Toxic Equivalency Factors (TEF) from the Food and Agriculture Organization of the WHO; (2) test whether saxitoxin congeners adequately predict RBA using the TEF model; and (3) improve TEF estimates by regressing RBA against saxitoxin congener concentrations using new mixtures methods. Project 3 will evaluate community shellfish harvesting, consumption patterns, and risk perceptions around PSP to develop community-specific risk profiles. Investigators will (1) determine knowledge of local and regional health risks experienced or perceived by communities in southeast Alaska with respect to PSP; (2) analyze existing state-level data collected intermittently for the last few decades on subsistence shellfish harvesting and consumption for patterns which can inform this project and may reflect changing marine conditions; and (3) develop and execute probabilistic health risk models based on shellfish and consumption distributions to better inform communities as to the possible risk profiles in areas where subsistence harvesting and consumption is common, especially outside of commercial sites.